Cell-Surface Glycoconjugates

The focus of this research is the synthesis of cell-surface glycoconjugates using as building blocks aluminoxy-acetals and related asymmetric ketals. The methodology allows for the preparation of complex carbohydrate sequences and thus, the ultimate synthesis of inhibitors of the glycoprotein processing enzymes found in the Golgi apparatus. %%% With this award, the Synthetic Organic Program is supporting the research of Dr. Robin L. Polt of the Department of Chemistry at the University of Arizona. Professor Polt will focus his work on the chemical synthesis of novel cell-surface glycoconjugates, compounds that can be used as biochemical tools for the study of membranes and Golgi apparatus function.